Novel Implants for the Spinal Cord Injured Patient

9315572 Yannas The inability of damaged or severed nerve axions to reconnect following spinal cord injury causes paralysis, a condition amenable to restorative treatment. However, the recent availability of chemical analysis of extracellular matrices (ECM) has enhanced understanding of environmental preferences of growing peripheral axons. This in turn has led to the fabrication of prostheses which have induced rapid and almost complete recovery of function of transected sciatic nerves in small rodents. The goal of this research program is to synthesize, characterize and optimize the composition and pore structure of chemical analogs of ECM (based on graft copolymers of type I collagen and chrondrotin 6-sulfate) that may facilitate optimal elongation of spinal cord axions. The knowledge gained will be used to design implantable prostheses that will facilitate reconnection of axons of the spinal cord. Support for clinical studies will be sought from other sources. This research, if successful, is expected to improve the quality of life of individuals with spinal cord injuries and effect a significant cost savings in health care. This program, supported under the Cost Effective Health Care Technology Initiative, is a collaborative interdisciplinary effort involving materials scientists and health care practitioners from the Fibers and Polymers Laboratory as well as the Department of Biology and Brain & Cognitive Science at the Massachusetts Institute of Technology, the Department of Neurosurgery @ Deaconess Hospital, and the Orthopedics Laboratory @ Brigham and Women's Hospital. ***